Japan Long-Term Visit: Air-borne Organics and Ambient Ozone Prediction

This award will enable Dr. Richard A. Wadden of the University of Illinois at Chicago to conduct research in Japan for six months. He will collaborate with Dr. Shinji Wakamatsu of the National Institute for Environmental Studies (NIES) in Tsukuba, Japan to compile an accurate data base on the emissions of hazardous organic compounds in the Tokyo area and to develop a model for the prediction of ambient ozone levels. Both hazardous organics and ozone constitute major air pollution problems. Dr. Wadden has expertise in applying source-reconciliation techniques to the emission of air toxics, while NIES scientists have concentrated their efforts on developing ozone prediction models. Close cooperation between these researchers is a logical next step because ozone production is related, in part, to organic emissions.